1988 IEEE International Symposium on Circuits and Systems, Espoo, Finland, June 7-9, l988

Funds are requested to provide travel assistance to approximately 15 participants in the 1988 IEEE International Symposium on Circuits and Systems in Espoo, Finland in the area of Large-Scale Networks and Power Networks.